Parallel Computing for Undergraduate Faculty

This project introduces undergraduate computer science faculty to parallel computing. When they have completed the project they will not only be prepared to develop an undergraduate course on parallel computing, but also to assess the feasibility of establishing an undergraduate parallel processing laboratory at their own college and the possibilities for incorporating aspects of parallel computing into other courses. The project begins with an intensive two- week course in the summer of 1992. The course includes lectures surveying the broad scope of parallel computing and instruction on the design and implementation of parallel algorithms. About half the time during this course is spent doing hands-on programming. There is a parallel development work station for every participant and four parallel computers (three with sixteen processors, one with eight processors) for running and bench marking the programs. During the Fall, the twenty participants work on larger projects, with site visits from the instructors and/or visits back to Colgate. In January 1993 there is a one-week seminar where participants present their projects and discuss the practical aspects of teaching parallel programming to undergraduates.//